Noise Tolerant DSP for the Deep Submicron Era

Advances in multimedia digital signal processing (DSP), wireless communication systems, integrated circuit technology and portability requirements have fuelled research into the design of energy-efficient deep submicron (DSM) systems. Noise has emerged as a problem of significance for design in the DSM regime. This research addresses the dual challenge of designing reliable and energy-efficient DSP systems in the presence of DSM noise. Three coupled approaches are being explored: 1) algorithmic noise-tolerance (ANT) that employs stochastic signal processing techniques to combat DSM noise, 2) noise-tolerant dynamic circuit design techniques that provide noise-immunity with minimal energy penalty and 3) a CAD methodology that optimally folds the results of 1) and 2) in order to achieve a specified degree of system reliability and energy-efficiency.